Generation of Baryon Number Fluctuations in a Cosmic Phase Transition and Their Effect on Primordial Nucleosynthesis

It is proposed to investigate the generation of isothermal baryon number fluctuations in a cosmic QCD transition and the effects of these density fluctuations on the outcome of primordial nucleosynthesis.